Natural Products from Blue-Green Algae (Chemistry)

The Organic and Macromolecular Program is supporting research dealing with the production of chemicals from blue-green algae that exhibit important and unusual biological properties. These microorganisms lie near the bottom of the food chain in marine systems, and, therefore, exert a strong effect on the course of life in the oceans. The secondary compounds produced by these organisms often have strong effects on other species. This research is aimed at identifying these chemicals and attempting to understand how the producing organisms go about synthesizing such unusual chemical compounds. The first major aim of this project is to isolate and identify unusual, bioactive natural products that are found in cultured blue-green algae. Research to date has concentrated mainly on the rapid-growing, relatively abundant cyanophytes found in terrestrial ecosystems and belonging predominantly to the Nostocales. This research is focusing on the slower-growing and rarer blue-green algae, particularly those found in marine environments, for new leads. Screening of extracts of the blue-green algae cultured to date for a wide range of pharmacological and agrochemical activities indicates that these prokaryotic microorganisms represent a good source of new commerical products. Relatively little is known about the chemistry of secondary metabolites in blue-green algae. Many extracts of cultured cyanophytes already on hand show interesting fungicidal, algicidal, antiviral, and other activities. This research is concerned with studying the natural products that are responsible for these activities. The second area of research in this project is the study of the biosynthesis of natural products found in blue-green algae. Studies are being carried out on several potentially important classes of compounds that have been isolated to date, such as the hapalindoles and scytophycins.